Proton Glass Dynamics

Professor Schmidt will investigate proton glass dynamics using measurements of the dielectric susceptibility and nuclear magnetic resonance techniques at pressures up to 5 kbar and temperatures to 4 Kelvin. The proton glass system, Rb1- x(NH4)xH2PO4, is a mixed system of a ferroelectric and an antiferroelectric. Substitutions with deuterium or arsenic will be made for the hydrogen or phosphorous respectively. The competing ferro- and antiferro-electric interactions prevent a transition to an ordered phase and lead to glassy behavior as evidenced by the dielectric relaxation time. A Monte-Carlo simulation of this system will be carried out. An interpretation based on hindered diffusion of thermally generated intrinsic defects, as developed by the principal investigator, will be applied to the new results.